Real-Time, In-Situ, Process Control for Chemical-Mechanical Polishing Planarization

9360498 Tang Production of microelectronic devices with pattern features in the sub 0.25 micron regime will require significant advances in microlithographic and manufacturing technologies. Current I line stepper tools are patterning state of the art devices with Depth of Focus (DOF) budgets of 1 micron and below, a manufacturing nightmare. Recent research has demonstrated that Chemical Mechanical Polishing (CMP) planarization significantly alleviates DOF problems by achieving superior global planarization. CMP planarization technology has the potential to extend current manufacturing tools to the 0.25 micron regime and beyond. However, the major problem with CMP is that currently, there is no effective, commercially available means of measuring and controlling the thickness of the layer being planarized in a real time, in situ manner. The purpose of this research is to develop a non contact technology and method to provide real time, in situ process control for CMP planarization. Commercial applications of the research include: a non iterative, precise CMP process; such a process is useful and relevant for most all types of integrated circuit manufacturing.